A 500-900 GHz Heterodyne Receiver for Astronomical Spectroscopy

Dr. Jaffe and his group have designed and constructed a spectrometer receiver for the 500.900 Gigahertz frequency band. The receiver consists of a cooled, open.structure Schottky diode mixer coupled quasi.optically to the telescope and to an optically pumped laser local oscillator. This grant will be used to package the system for use on the California Institute of Technology Submillimeter Observatory telescope in Hawaii. The receiver built by Dr. Jaffe can make a valuable contribution to many astrophysical problems. These include studies of warm, ultra.dense gas in the immediate surroundings of massive protostars, observations of warm quiescent gas including studies of CII/CI/CO interfaces in clumpy molecular clouds, and investigations of hot molecular gas in protostellar flows.